CRI Infrastructure Acquisition: A Cluster Testbed for Experimental Research in High Performance Computing

The principal investigators at Texas A&M will acquire a 72 node cluster computing system for use in research and education in scalable computing techniques and large-scale applications. Scalable techniques include improvements in compilers, performance analysis, cluster interconnects, operational transformations, and numerical methods. Large-scale applications include efficient parallel and distributed execution on applications such as bioinformatics, particle transport, and submicron VLSI simulation. The system will allow researchers to reconfigure the system to explore network and operating system support and permit experimental research that would not be compatible with shared infrastructure used in production computing. The system will also be used in graduate and undergraduate education including a program focused on increasing the participation of women and underrepresented students.